Bulk Metal Particle-Superconducting Ceramic Composite

This project deals with the fabrication of bulk high Tc (> 77K) superconducting metal oxide composite material that could be formed into sheets, ribbons, and possible wires. The materials would be random composites consisting of small metal particles randomly dispersed throughout a host of superconducting oxide. The specific aim of the research is to develop a composite that retains the desirable electrical and magnetic properties of the superconducting phase (e.g., zero electrical resistance, a high superconducting transition temperature (Tc > 77K) and magnetic screening) but whose mechanical properties are modified to improve strength and toughness.